Graduate Teaching Fellows in Elementary School Education

The teaching fellows (graduate and senior undergraduates in biology, earth sciences, physics andastronomy) will be trained in a summer institute, and then paired with grades 3-6 teachers. Inconsultation with Binghamton University faculty, the pairs will develop the "research lessons",

test them during the academic year in grades 3-6 classrooms and continue to refine them. Each66research lesson" is a series of lessons based on the 5E Teaching Cycle and with an emphasis on

identifying and challenging misconceptions of students in grades 3-6. The "research lessons" willprovide models for addressing the new curricula programs of New York State and BinghamtonCity Schools, the chosen school district. The "research lessons" will make use of a wide varietyof excellent educational materials, and so what the lessons will do is provide conceptually linked

and carefully sequenced lessons that specifically address the students' misconceptions. A prioritywill be to develop the habits and skills of scientific inquiry through demonstrations and hands-on

activities. An important outcome is that both the teaching fellows and the teachers will learn howto develop, assess and refine "research lessons" that target science content, habits and skills instudents.